Error Bounds and Algorithms for Complementarity and Related Problems

An error bound for a problem is a bound on the distance from any point to the solution set by some error function evaluated at that point. There recently has been active interest in using error bounds to design and analyze solution methods for optimization and complementarity and variational inequality problems. One focus of this project is a continued study of this subject, but in new directions. In particular, the following problems are being studied: (i) error bounds for perturbations of linear/nonlinear programs and complementarity problems, (ii) the use of error bound to implicitly identify active sets and obtain local superlinear convergence of methods under weaker assumptions than those existing, (iii) error bounds and their use in estimating the convergence ratio of Gauss- Seidel and Jacobi methods for infinite-dimensional convex minimization. A second focus of the project is the design and the analysis of solution methods for complementarity and related problems. In particular, these problems are being studied: (iv) branch-and- bound strategies for globalizing local methods for complementarity problems, (v) extension of interior path- following and non-interior methods and merit functions for complementarity problems to the semi-definite setting, i.e., in the space of symmetric real matrices. A third focus of the project is (vi) the development of epsilon- relaxation methods for multicommodity network flow problems and, more generally, linearly constrained minimization problems with separable convex costs. Computational study of the above methods is being conducted.